Computing Equipment for Realistic Modelling

Four very fast numerical coprocessors will enable the incorporation of realistic models into undergraduate applied mathematics curriculum; solution of numerically complex problems posed by industry; and enhancement of the new bachelors degree program in Applied and Computational Mathematics at San Jose State University. The equipment will provide high speed computing and good graphics in a networked environment for upper division applied mathematics courses and industrial projects. Numerical Analysis, Linear and Non- linear Programming, and Partial Differential Equations will introduce realistic modeling which minimizes the programming required so that the mathematics concepts, techniques and graphical output can be emphasized. Faculty workshops in the curriculum and equipment use will be formed. The grantee is providing an equal sum for the equipment obtained from non-Federal sources.